CAREER: Realizing Derived Equivalences

DMS-0134938
Brooke E. Shipley

The research component of this proposal involves several questions which fall into two overall projects. One project is to consider
when an equivalence between derived categories is induced by a
more richly structured equivalence. The goal here is to develop
an obstruction theory for realizing derived equivalences by
underlying structured equivalences. In particular, this may have applications to the question associated to Broue's Conjecture in
representation theory of which stable equivalences lift to derived equivalences. The second project is to develop homotopy theoretic algebraic models. One piece of this project is to continue work
with John Greenlees on algebraic models for rational equivariant cohomology theories. More generally, the investigator proposes
to develop algebraic models for various stable homotopy theories.

The proposed research projects involve the interplay beween the
study of algebraic structures and topology, the study of shapes
or spaces. Algebraic topologists use algebraic structures to
describe and simplify topological phenomena. In a project on
realizing derived equivalences, the investigator hopes to use techniques developed in algebraic topology to attack questions
which originate in algebra. These techniques include the use
of a theory of obstructions, which determines whether certain constructions are possible. In another project the
investigator plans on extending existing algebraic models to
include structures involving symmetries. The educational
component of this proposal also includes several parts.
The investigator will be involved in the summer research
programs for undergraduates at the University of Chicago
and Purdue University. With Lucho Avramov, she will organize
a workshop on topics related to derived categories of interest
to a broad range of algebraically related fields. With
Jim McClure and Guershon Harel, the investigator will develop
a new course for mathematics education majors based on Euler's ``Elements of Algebra". The goals of this course are to help mathematical education students master skills in algebra,
develop confidence for teaching algebra, and understand the
motivation for material contained in a standard abstract
algebra course. The investigator will also participate in several aspects of the Women in Science Program at Purdue University.